Approximately holomorphic techniques and monodromy invariants in symplectic topology

DMS-0244844
Denis Auroux

This project aims to study the topology of symplectic manifolds using
approximately holomorphic techniques (introduced by Donaldson and
further developped by Auroux) and the corresponding monodromy
invariants. Approximately holomorphic linear systems on symplectic
manifolds give rise to structures such as Lefschetz pencils and maps to
the complex projective plane, whose monodromy is described by morphisms
with values in mapping class groups or braid groups. By studying the
monodromy invariants of symplectic manifolds, new insight will be
obtained into the relationships between symplectic manifolds and
complex projective manifolds: symplectic versus complex deformation
equivalence, isotopy and non-isotopy phenomena, topological constraints
on symplectic manifolds. In addition, relating monodromy invariants
with Gromov-Witten invariants or Floer homology should help to
understand mirror symmetry, while the more combinatorial aspects of the
project are closely related to the algorithmics and computational
complexity of mapping class and braid groups.

Symplectic manifolds are geometric spaces with special structures,
which first arose in the Hamiltonian formulation of classical
mechanics. Mathematicians have recently become very interested in their
geometry and topology (intrinsic structure), in part due to motivating
questions from theoretical physics (string theory). This project aims
to study the topology of symplectic manifolds using an approach
developped first by S. Donaldson and subsequently by Auroux, which
makes it possible to obtain a complete description by combinatorial
invariants involving braid groups (a concept closely related to knots).
One of the main goals of the project is to relate the topological
features of symplectic manifolds with those of complex algebraic
manifolds (a more special, much better understood class of geometric
spaces). In addition, some applications to other domains such as
mathematical physics (the "mirror symmetry" duality in string theory)
and cryptography (the computational complexity of combinatorial
problems involving braid groups) will be explored.